Development of UW-PNNL Collaborative Curriculums in Nano-Science Technology

The overall goal of this proposal is to develop a prototype for a new type of collaborative education
that meets broad and expanding needs in the areas of nanoscience and nanotechnology that will build on the research and educational strengths of the University of Washington (UW) and Pacific Northwest National
Laboratory (PNNL) and their newly formed UW-PNNL Joint Institute for Nanoscience.

This project is primarily targeted to speed up undergraduate and graduate entry into the
nanotechnology field and enhance education and research by developing a new series of
interdisciplinary nanotechnology courses taught via a combination of local and remote
instruction. These courses will be taught by faculty at the University of Washington and
by researchers at Pacific Northwest National Laboratory and be taken by students at both
locations, as well as other locations around the state, region, and country. Some of the
course offerings will be specifically oriented to making introductory interdisciplinary
nanotechnology courses available to students at smaller undergraduate institutions.

.
Additional nanotechnology offerings will attract undergraduates into the nanotechnology
program and train future leaders for industry by providing hands-on research experience
and contact with faculty and researchers both within and outside of the UW. They will
broaden the nanotechnology curriculum and provide opportunities for students to explore
individual research projects and to collaborate with each other and with faculty and
researchers at both locations. The program will contribute to the interdisciplinary PhD
program in nanotechnology and other relevant sciences.

The courses to be developed will increase distance learning curriculum offerings, while
also providing a new model of teaching/learning that can be adopted in other disciplines
and across other geographies to enhance research, education, and faculty/student collaboration.